Removal of Organic Pollutants From Water Fixed-Bed Adsorption and Photocatalytic Regeneration of the Adsorbent

This is an award to support research to determine the technical feasibility of a process for removal of organic substances of potentially toxic significance from water. The process involves passage of contaminated water through a fixed-bed, adsorbing medium and regeneration of the exhausted adsorbing medium by a photocatalytic process based on use of n-type semiconductor photocatalysts such as titanium dioxide. Regeneration of the adsorbing medium and destruction of the adsorbates are expected to be accomplished by radical species formed when the catalysis is subjected to illumination with ultra- and near-ultra light radiation. Adsorption processes are recognized as being effective for removal of organic pollutants from water. Economic feasibility of adsorption depends largely on ability to regenerate the adsorbing properties of the adsorbing medium and to deal effectively with the organic substances released during the regeneration process. Results of this research are expected to be used for devising mathematical models that can be used in potential selection and engineering design of processes and systems for use in decontamination of water for municipal and industrial needs.